Intersections: Art, Science and Technology -- A Radio Project

9634183 Perez-Luna This project will examine the implications of the intersection of art, science, and technology as revealed by the events occurring around the celebration of the fiftieth anniversary of the first general electronic computer, ENIAC-50. The finished product will be radio programming and audio material that presents the coming together of scientists, artists, and other participants in Philadelphia. It will build on the previous research and explorations in both of these fields toward finding commonalties and ways in which each has influenced the other. The finished product will be broadcast for the general public and also can be made available to scientists and educators in the field as resource material for courses, seminars, and lectures as they explore the intersections of science and art and implications this has for research and education.